RUI: Acquisition of an Oligonucleotide Synthesizer

This instrument will be used for the synthesis of DNA oligonucleotides ranging in size from 15 to 30 bp. These oligonucleotides will be used for the following purposes: 1) as specific DNA primers for dideoxy sequencing, 2) as primers for PCR (polymerase chain reaction) applications, and 3) as primers used in the technique of site-directed mutagenesis. All three of these procedures require oligonucleotides of specific sequence, which will be used in these research projects: 1) characterization of a morine MHC hotspot of recombination, 2) molecular characterization of bacterial luciferase, and 3) molecular characterization of a new family of retroviral sequencer in the mouse.